POWRE: Top Quark Dynamics at Tevatron Energies

The POWRE grant will serve as an opportunity to extend and develop her research at a critical time in her career. This proposal adddresses the fundamental theoretical question of the origins of mass. The PI's research involves the causes of electroweak symmetry breaking and the mechanisms responsible for the diverse masses of the quarks and leptons, the elementary constituents of matter. While the standard model of particle physics can accommodate massive particles, it does not explain the dynamics through which mass arises. This proposal seeks to advance the understanding of the origins of mass by exploring physics that lies outside the Standard Model. The PI will employ techniques ranging from field theory to model building to computer simulation. The award is funded by the NSF POWRE program, the Office of Multidisciplinary Activities in the MPS Directorate, and the Physics Division.